Oceanographic Technical Services, 2009 - 2011, R/V Savannah

Skidaway Institute of Oceanography (University of Georgia) proposes to support technical services on R/V Savannah, a 92’ general purpose UNOLS research vessel operated as part of the University-National Oceanographic Laboratory System research fleet. They will provide a technician on most cruises to maintain and assist scientists in the use of shared-use instrumentation at sea. The technical services group will maintain, calibrate and provide for qualified users items from their pool of shared-use research instrumentation. The budget in this proposal is for the first year of a 3-year continuing grant.